Reconstructing Earth's Volcanic History from High Resolution Polar Ice Cores

9321478 Mosley-Thompson This award is for support for a study to conduct anion and cation analyses of samples from polar ice cores to establish an annually resolved 800-year volcanic history for Greenland and a 4000-year history from Antarctica. The proposed 800-year Greenland record will complement the existing 1000-year record from South Pole Station and make detailed interhemispheric comparisons possible. The proposed 4000-year Antarctic record will extend from the South Pole volcanic record and ultimately complement the longer histories expected from central Greenland cores. Interhemispheric comparison of these high resolution (annual to decadal) time series will allow identification of those near-tropical eruptions which perturb the sulfuric acid content of the global atmosphere. ***